The Spectrum Laboratory: Towards Authentic Inquiry for All

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

This project addresses physics, astronomy, and chemistry education at the high-school level. Spectroscopy is the single most important diagnostic tool in the sciences, and is required for inquiry at the frontiers of science across many disciplines, yet is unavailable to most classrooms. The Smithsonian Astrophysical Observatory proposes to design, implement, and investigate the impact on students of an innovative curriculum supplement called the Spectrum Laboratory. The Spectrum Lab will be an online, interactive learning environment that enables students to make use of the database of publicly available spectra from research scientists, as well as from students. The online learning resource and associated materials are purposefully being developed and tested with a demographically diverse set of schools. The project will determine how the design of a spectroscopy workspace can help students to use spectra while gaining fluency with a range of important science practices. The project's significance and importance is to greatly increase the opportunities for high school students to engage in authentic inquiry. Being able to evaluate and interpret real-world data is a hallmark of data literacy that is developed with Spectrum Lab. Project will potentially benefit the field through advances with respect to education and diversity, and benefit society by equipping high school students with the perceptual and cognitive factors that promote students' reasoning about spectra.

The Spectrum Lab's initial design applies research-based principles recommended for educational interfaces that engage students with graphical data advancing knowledge from prior research into understanding of how students make sense of spectroscopic data and its graphical representations. The project will be developed in collaboration with partner teachers in up to eight high school classrooms, representing a diverse population of learners, and then tested with a national group of 20 teachers with 600 to 800 students. A mix of quantitative and qualitative measures, including pre/post surveys and assessments, analysis of student project work, classroom video, and teacher surveys, will help address researcher's questions about students' experiences with the Spectrum Lab. The data to be gathered will be used to iteratively improve the design of the laboratory to aid students understand the source of these authentic data coming from spectroscopy to address real-world science questions of interest and importance to them. The Spectrum Lab will enable students to engage in a broad range of inquiry projects that were previously inaccessible, including projects near the frontiers of science. The students will become involved in their authentic inquiry projects, where each activity engages them in key science practices, including generating model spectrum plots to make predictions, assessing and interpreting data, and reasoning from evidence (and models) in support of a claim. The students will be using graphs of well-documented experiments and in physics, more challenging graphs of spectra of less familiar wavelength axis. The students in chemistry will learn how to relate the bright lines observed in an atom's spectrum to energy levels of the atom. There will be studies that track students' eye movements show that students associate the peaks or valleys of a spectrum with individual atoms in a molecule, rather than with the overall properties of the molecule. The resources developed by the project will be freely available online for teachers and researchers. The Spectrum Lab is an advance in education technology that uses modern tools for enabling interactive data visualization. Its features enable students to integrate and apply the most important elements of science practice, such as the ability to draw evidence-based conclusions, as well as the ability to gather, evaluate and interpret data, intended to help students' science practice more closely resemble how research is done. The Spectrum Lab will modernize a critical part of high-school science classrooms, help teachers meet the expectations of the Next Generation Science Standards, and will better prepare students for college work.